Advanced Monitoring System for Long-Span Bridges

9622516 Wang In recent years, various monitoring and diagnosis hardware have been developed for applications to civil infrastructures. It is now possible to design an automated and reliable system, which can both continuously monitor the structural performance of a bridge and assess its status of damage or deterioration. This project conducts a three year research effort to develop an automated monitoring system implements on a long suspension bridge in China, which will make available to the project personal assistance such as technicians and logic supports required for the field experiments. The effort will be focused on the design and development of a self displacement measurement device and a wireless data communication system. The diagnosis techniques include finite element modeling of the suspension bridge, modeling and measurement of strong wind,earthquakes and traffic loading, analysis of the ambient vibration data through the use of NExT technique to eliminate the use of an exciter, a global damage diagnosis technique to identify the damage, and selection of sensors and techniques to detect localized damage and defects. A section model of the suspension bridge will also be constructed and tested in the wind tunnel at Hong Kong University of Science and Technology in order to determine some of the aerodynamic parameters and to calibrate and optimize the sensor locations. This investigation involves international team of researchers including industries, universities and national laboratories. The ultimate goal of the research is to design and develop an advanced system that can be practically and efficiently installed into a long span bridge to monitor day to day activities and to detect the damage or give a warning when a critical stress has been reached. Although a suspension bridge will be selected on line condition monitoring in this project, the developed system is expected to be also applicable in other large structure systems includin g truss bridges and tall buildings under severe loading conditions such as earthquakes and strong winds. ***